WORKSHOP: Unsolved Problems and Research Needs in Thermal Analysis of Material Removal Processes; Stillwater, OK, October 23-25, 2002

The goals of this workshop are: (1) To assess the state-of-the-art and to address the research needs in the thermal aspects of various material removal processes, in view of the rapid advancements in new experimental techniques, numerical methods, and analytical aspects (due to the availability of powerful, inexpensive personal computers); and (2) To provide the thermal basis for addressing "green manufacturing" which is so critical for the protection of the health and safety of the environment and associated personnel of the shop floor.

The focus of the workshop will be thermal aspects of various material removal processes, such as metal cutting, grinding, and polishing. Various experimental, analytical, and numerical techniques will be critically reviewed and research needs and opportunities will be identified.